RUI: Acquisition of equipment for tracking and purifying radioactive proteins

The objective of this proposal is to acquire a high quality, automatic FPLC system and a new gamma counter, to purify and track proteins/peptides (particularly radioactive proteins/peptides) and their metals or prosthetic groups. The FPLC system is needed because the laboratories of the primary investigators currently have only very limited access to such systems, although in each, purification of proteins/peptides (for determination of their structure, function and regulation) is a major activity. A new gamma counter is needed because the existing one is twelve years old and threatening to become unreliable. If it should fail, this would greatly limit the research of the primary investigators, who are utterly dependent upon it for tracing copper and iron in biological systems; tracking copper and iron binding proteins and their receptors during their purification and/or in studies of their binding capacities, kinetics and functions; identifying the binding sites of substrates and cofactors of specific enzymes via affinity labeling. The isotopes used (67Cu,64Cu,59Fe, 125I) are all gamma emitters, and double labeling is often required.